RIA: Bandwidth Allocation and Traffic Control in ATM Networks

This project in computer networking concerns traffic integration in the Asynchronous Transfer Mode (ATM) layer, particularly problems relating to bandwidth allocation and traffic control. The investigator has proposed an ATM traffic control framework, a central portion of which is the traffic control module (TCM). The effort involves: i) analytical and experimental work on traffic characterization, ii) TCM parameter evaluation and engineering, iii) performance analysis of the TCM serving statistically multiplexed call sequences and class definition, iv) scheduling multiple traffic classes, v) deterministic description of an incoming call sequence in terms of the parameters of the TCM, vi) creation of a UNIX-based prototyping environment on which the evolving traffic control framework can be tested, experimented with, and demonstrated.